Modeling, Detection and Recognition of Spatio-Temporal Events from Vide

This project addresses the design and analysis of algorithms for the
identification of dynamical models of image sequences for the purpose of
detection, classification and recognition of spatio-temporal events from
video. In particular, we concentrate on (segments of) image sequences that
satisfy certain statistical regularity conditions, such as second-order
stationarity, or certain physical constraints, such as Lambertian
reflection. While this does not cover the most general video sequences,
generality will follow from compositionality, by segmenting each sequence
into portions that do satisfy the assumptions. The purpose of our models is
to enable the detection, classification and recognition of dynamic events,
such as the presence of smoke, moving foliage, fire, walking humans etc. in
live video.